SBIR Phase I: Nanostructured Mixed Ionic/Electronic Conducting Catalyst for Intermediate Temperature Solid Oxide Fuel Cells

This Small Business Innovation Research (SBIR) Phase I project will demonstrate the feasibility of exploiting nanostructured mixed ionic and electronic conductor (MIEC) ceramic anode material for direct electrocatalytic oxidation of hydrocarbon in solid oxide fuel cell applications. The proposed catalyst consists of an electrical conducting phase, Sr0.88Y0.08TiO3, coated with an oxidation catalyst, Ce0.80Y0.20O0.19. Both phases are known MIECs ideal for fuel electrode materials in view of electrode polarization.

Commercial potential of the proposed technology includes solid oxide fuel cell applications, direct hydrogen generation for portable or stationary fuel cell systems for communication, computers, electric and hybrid vehicles, home utility suppliers, power source for appliances, military aircraft, electric wheelchairs, and medical power supply systems.